CRCNS Research Proposal: Exploring the Mechanism of 3-Hinge Gyral Formation and its Role in Brain Networks

A 3-hinge gyrus, a conjunction of cortical folds coming from three directions, is a promising metric to characterize brain folding patterns and has potential to transform the study of the brain structure-function relationship. However, there are several significant gaps in understanding its significance, for example, why a growing brain preferentially develops 3-hinge gyral patterns as opposed to many other possible folding patterns; what fundamental mechanisms contribute to this complex process; and whether 3-hinge gyri can serve as hubs in brain networks and show cross-subject similarity. The goal of this project is to explore the fundamental mechanism of 3-hinge gyral formations and their role in brain networks. The study will help reveal fundamental principles of brain architecture and produce a unified theoretical framework relating between cortical folding, axonal wiring, and 3-hinge gyral formation.

The long-term goal of this project is to offer a novel model to describe the relationships among brain morphology, connectivity, and function. The investigators will employ an integrated computational modeling and data-mining methodology to understand 3-hinge gyral pattern formation and its structure-function relationship in the cerebral cortex. The specific objectives are as follows: (1) Develop a computational mechanical model to explain 3-hinge gyral formation and the specific roles of geometrical parameters and axonal fibers. (2) Conduct neuroimaging studies to examine the potential role of cortical 3-hinge gyri as hubs in brain networks. (3) Perform imaging data analysis to test whether cortical 3-hinge gyri link the cross-subject similarity of cortical folding patterns to the correspondences of structural brain wiring diagrams and brain functions. By exploring the complementary information provided by cortical folding and 3-hinge gyral patterns, this project will offer a unique perspective to treat brain anatomy and connectivity collectively and better understand their relationships.